Prototyping Parallel Algorithms

This research investigates theoretical and practical issues in the design and evaluation of parallel algorithms, and involves cooperative work in theory and systems. The project ideally has four objectives. First, to develop a high level language for expressing parallel algorithms such that there is a natural correspondence between algorithmic concepts and programming language constructs and an algorithm can be expressed without forcing a serialization. Second, to study and develop techniques for mapping algorithms expressed in this high level notation to various architectures subject to simple user specified constraints. Third, to study instrumentation techniques for monitoring an algorithm's runtime behaviour on a given architecture. Fourth, to investigate issues related to giving high level visual feedback to the user on the performance of implementation of his or her algorithm on a specific architecture. These will set up an interactive loop between the user and the system that will enable rapid design and prototyping of parallel algorithms.